Research Experiences for Undergraduates at the University of Utah

Dr. Richard P.Steiner and other members of the Chemistry Department of the University of Utah are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry- analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the focus on a nationwide effort to attract women and minority students, particularly through contacts with Historically Black colleges and institutions with large hispanic populations.